GOALI: Stereoselective Catalytic Cross-Coupling Reactions

In this project, Professor James Morken of the Department of Chemistry at Boston College and Dr. Christophe Allais at Pfizer Inc. will develop new methods to facilitate the preparation of pharmaceuticals. Over the course of this three-year research grant, these efforts will lead to the introduction of new catalysts for the synthesis of chiral molecules (molecules that have left and right handed forms), and it is expected that these should be broadly useful to the scientific community. In addition to scientific advances, the graduate and undergraduate students that participate in this research will learn experimental techniques, concepts, and strategies in modern chemistry research, with an emphasis on those skills that are useful for medicinal chemistry, drug development, and chemical manufacturing. Through their activities in this research effort, students will also become practiced in communicating with other scientists and the broader community. Thus these efforts are expected to contribute to the development and training of the next generation of the STEM workforce.

The specific scientific objective of this grant is to develop new methods and catalysts for desymmetrization of organic electrophiles by catalytic borylation reactions. This process has not been studied from the standpoint of catalytic enantioselective synthesis and should offer powerful new methods for the efficient and selective construction of new building blocks for organic chemistry. Significant efforts will be focused on the introduction of new catalyst structures that are modular, easy to prepare, stable, and have properties amenable to selective and highly active catalysis. Desymmetrization reactions will be developed for the preparation of chiral biaryl compounds, spirocycles, allenes, and structures with N–C axial chirality, as well as the construction of molecules with C(sp3) stereogenicity.